Building a Cross-Institutional Collaboratory for 3D Visualization in Technical Education and Training

The project is a collaboration with Brookhaven National Laboratory (BNL), Alfred State College, Bergen Community College, Jamestown Community College, Nassau Community College, Rochester Institute of Technology, and Suffolk Community College to provide unique real-world scientific and technological experiences to a diverse mix of science and technology undergraduate students and teachers. Teams of three will participate from each institution for two consecutive 10-week summer internships. Additionally, the project will simultaneously build and disseminate exemplary pedagogical strategies based on the experience gained from a previous ATE project.

The focus of their efforts will be to work with BNL staff to create novel applications with its unique three dimensional (3D) visualization technology as a teaching tool, and to export these new 3D applications back to the community colleges. Problem selection will be driven by the needs and expertise of the participating educational institutions in consultation with the BNL staff. At the end of the project, a collection of user-friendly techniques will be available that will allow college teachers to easily use the new 3D visualization theaters to deliver lessons spanning disciplines from architecture to protein chemistry.